High Performance Metropolitan and Internet2 Connectivity for Portland Oregon Research Institutions

This high performance connections award provides support for three research
institutions in the Portland, Oregon metropolitan area to establish a very
high performance connection to the gigapop at the University of Washington.
The involved institutions are Oregon Graduate Institute, Oregon Health
Sciences University, and Portland State University. Their formation of a
metropolitan area network, initially designed to support their combined
research interests, holds promise for eventual impact of advanced
networking on health and other public services, education, and
community-based access within a metropolitan setting. Initial research to
be supported atop this advanced network link includes the "3-D Visible
Embryonic Heart Project", "The Qasar Project for Predictable, Adaptive
Multimedia Delivery", and "The CORIE Project" (a prototype system for the
Columbia River that deals with meteorological and other related
environmental issues).